Grant for Exploratory Research: Synthetic Proteins for Electron Transfer using Macrocyclic Templates

This Grant for Exploratory Research in the Inorganic, Bioinorganic and Organometallic Program is awarded to Dr. Kristin B. Mertes of the Chemistry Department, University of Kansas, for work on metalloproteins. Some of the work will be conducted at the California Institute of Technology. A polyammonium macrocycle containing a 24-member ring will be used as a template for attaching peptide chains. These chains consist of 14 residues and are expected to form in the desired motif, the 4-alpha-helical bundle. Bimetallic centers of copper or manganese will be incorporated into the metalloproteins. A luminescent ruthenium complex will be reacted with the imidazole of a terminal histidine, and a flash-quench technique will be used to investigate long-range electron transfer rates between ruthenium and the bimetallic centers. %%% This project will study long-range electron transfer in a synthetic protein of known topology. Since control of the topology of synthetic proteins is possible, this project will test the feasibility of investigating long-range electron transfer in polypeptides as a function of shape and distance. Since electron transfer of this sort is crucial to many biochemical reactions, this project is potentially relevant to the design of enzymes.